Analysis of Power System Dynamic Mechanisms and Controllability Using The Theory Of Foliations

9307149 Liu This research is in the application of the theory of foliations to power systems. More specifically the intent is to (1) Derive a new theory which will integrate various dynamic mechanisms, including those governing the frequency and voltage behaviors and their interaction. (2) Apply the theory of foliations to develop a new method for power system dynamic analysis which allows interaction of various mechanisms but can also be decomposed to direct the focus on a specific phenomenon. (3) Develop controllability criteria and control algorithms based on the foliations derived from the power system model. ***